Chapman Conference on the Lower Thermosphere and Upper Mesosphere

Research in the area of upper mesospheric and lower thermospheric physics and chemistry has experienced a revival of interest over the past decade. The importance of this region has become increasingly apparent through modelling studies while advances in observational techniques have allowed an increase in our empirical understanding. This is the region of the Earth's atmosphere about which the least is known, owing to the difficulty of making detailed measurements of the important parameters. Furthermore, current research has pointed towards the possibility of rapid anthropogenic change in the region. This Chapman Conference will provide an opportunity for the international community of aeronomers and atmospheric scientists to engage in focused discussion of progress in studies of the lower thermosphere and upper mesosphere in a variety of areas using modelling as well as empirical approaches. These discussions will be particularly timely, in view of the efforts currently underway under the auspices of the Coupling Energetics and Dynamics of Atmospheric Regions (CEDAR) initiative. This initiative, which is an authorized component of the Solar Terrestrial Energy Program (STEP), encompasses several activities which address various questions regarding the physics and chemistry of the upper mesosphere and lower thermosphere, including the Lower Thermospheric Coupling Study (LTCS or MLTCS), Coupling and Dynamics of Equatorial Regions (CADER), ARIA, and AIDA. In addition to Cedar activities, the NASA TIMED (Thermosphere-Ionosphere-Mesosphere Energetics and Dynamics) Mission, planned for the mid-1990's, is invigorating researchers toward the development of improved observational techniques.